Mathematical Sciences: Analysis of Mathematical Models of Ecological Problems

The chemostat is a piece of laboratory apparatus that is used in ecology to study exploitative competition. (It is a model of a simple lake.) It is one place where both the mathematics and the biological experiments are tractable .. all of the needed coefficients are measurable in the laboratory. The basic model does not allow for the delay between nutrient uptake and reproduction (cell division). A model which does allow for a delay does so in a way which tries to capture the complicated physiology involved in a single constant. This project will develop new mathematical methods wich incorporate the cell cycle (or cell growth) and will analyze their behavior. The models will be either functional differential equations (cell cycle) or partial differential equations (cell growth). Another modification of interest is to remove the well stirred hypothesis of the chemostat and let the nutrient and the cells move by diffusion or convection .. resulting a reaction diffusion equation or (in the discretization) a gradostat. The project includes an analysis of these models as well. The notion of persistence captures the ideas that all components of a model ecosystem "survive". Recent results extend this idea to asymptotically smooth semi.dynamical systems which includes delay equations and some partial differential equations. Professor Waltman will investigate the applications of this work to meaningful biological problems of this type, particularly those describing competition.